Tracking the Causes and Effects of Galactic Winds with Resolved Spectroscopy

Extreme winds driven by bursts of star formation or active galactic nuclei can eject gas from a galaxy, but weaker galactic winds are more prevalent and their long-term impacts on galaxy evolution may be significant. Principal Investigator (PI) Medling and her team will analyze the Sydney Australian Astronomical Observatory Multi-object Integral-Field Spectrograph (SAMI) Galaxy Survey data to identify outflows and quantify the effects of winds on their host galaxies. The PI will form a multi-level mentoring community to build connections between students, faculty, and staff at the University of Toledo to help students excel in their degree program. The team will develop a public show for the Ritter Planetarium, “The Secret Lives of Galaxies”, which will be freely available for download in both English and Spanish.

The team will use a 3D shock diagnostic that can trace outflows 1-2 orders of magnitude weaker than standard methods. The team will combine SAMI gas and stellar kinematics with follow-up near-infrared observations using the Rapid Infrared Imager Spectrometer on the Lowell Discovery Telescope and molecular gas observations using the Atacama Large Millimeter/submillimeter Array. The combined datasets will provide three independent tracers of shocked gas at similar spatial resolutions: optical emission lines at 10,000K, near-infrared molecular hydrogen lines at 500K, and carbon monoxide emission at 10-30K. This large sample of spatially resolved measurements of the phase structure of outflowing gas is crucial for constraining feedback prescriptions in galaxy evolution simulations.